TS: The University of Texas at Arlington Luminescence Laboratory

This award supports a full-time laboratory technician. This technician will expand access to luminescence dating services for the broader Earth Science community, especially to undergraduate and graduate students. This laboratory houses several unique instruments that are unavailable elsewhere in the United States and are thus uniquely valuable to external visitors. In addition, the technician will develop freely available software for luminescence thermochronology analysis. Finally, the technician will help maintain research facilities, develop more accessible data archiving practices, and engage in community outreach activities.

The technician will enhance a variety of research projects which involve novel luminescence measurements of sediment or bedrock samples. Most of these projects, include graduate students, many of whom will visit the laboratory, and PIs who are early career researchers. Results from these projects will include the first measurements of ventifact erosion rates, the first luminescence ages of hydrothermal explosion deposits in Yellowstone National Park, the first luminescence-based exhumation histories of tectonic blocks in Southern California, and the first use of luminescence measurements to constrain boulder comminution on hillslopes. Other projects will determine paleoseismic records along several fault strands globally and records of ice sheet retreat in Greenland and Antarctica. The laboratory also hosts several unique analytical capabilities. It is the only US luminescence dating laboratory with a focus on luminescence thermochronology, it hosts the only infrared photo-stimulated luminescence rock slab imaging device in the US, which is used to measure sunlight exposure ages or erosion rates of hard rock surfaces. UTALL will soon host the first hydrostatic pressure vessel to test signal resetting within a luminescence dating laboratory, all of which the technician will help maintain and run.